REU: Phytoplankton Flux and the Sediment Record of Paleoproductivity in the Northern California Current and Central Pacific

This project involves a study of preservable phytoplankton in sediment traps and cores from a transect across the northern California Current and Central Pacific Gyre. Diatoms, silicoflagellates, dinoflagellates, and calcareous nannofossils will be quantified at the species or generic level in monthly and semi-monthly trap samples over a two year period. The study will examine the spatial and temporal variability of production and flux from the highly productive and seasonally variable coastal zone to the oligotrophic gyre, and compare the seasonal input from the water column with the multi-year accumulation in the surface sediments. Multivariate statistics will be used to describe the mixture of seasonal trap samples which best reflects the sediment assemblage; artificial changes in the trap data, such as increasing or removing certain taxa, can simulate the effects of dissolution, El Nino-like conditions, and other processes not actually recorded in the traps. The results of this comparison will permit a better understanding of the degree of information bias in the sediment record. Once this question is resolved, the fossil record for the last glacial/interglacial cycle will be studied in cores from each site, thus extending the analysis of temporal variation in production to the geologic scale. %%% The preservation of silicieous microfossils preserved in sediment trap samples and in cores underneath the California Current and Central Pacific Gyre will be examined. The temporal and spatial variability of flux of the siliceous components in the trap samples will be used to interpret the sedimentary record so that the effect of changes in climate on the oceanographic conditions in the region can be understood. This study will be done in conjunction with other researchers looking at many other variables in the trap and sediment samples. These results will provide the most detailed picture of the controls on preservation of geologic material used to reconstruct paleoclimate that has been done in this region.